SC08 Broader Engagement Program

The Institute of Electrical and Electronic Engineers requests travel support for participants in the Broader Engagement (BE) Program at the Supercomputing (SC) 2008 Conference. That program aims to increase opportunities for U.S. undergraduate, graduate, faculty, industry professionals, and researchers to learn about high performance computing (HPC). It emphasizes the participation of members of the groups that are underrepresented within the HPC community: African Americans, Hispanics, Native Americans, Alaska Natives, Native Hawaiians, Pacific Islanders, persons with disabilities, and women. Participants will have the opportunity to connect with mentors, and attend a doctoral symposium, a student job fair, and other special sessions. This award will make it possible for additional participants to attend.